3-Manifolds After Perelman; March 2006; Edinburgh, UK

Abstract

Award: DMS-0601251
Principal Investigator: Cameron McA. Gordon, Alan W. Reid

The project is a workshop on 3-dimensional topology that will be held at
the International Centre for Mathematical Sciences in Edinburgh, UK, in
March, 2006. Thurston's Geometrization Conjecture, which has guided
research in 3-dimensional topology for almost three decades, has now
been established, and consequently there is a need to set out a program
for future research in the subject. This is the objective of the
workshop. The program will be centered around five series of three
1-hour lectures, given by Jeff Brock, Dave Gabai, Marc Lackenby, Peter
Ozsvath, and Peter Shalen. There will also be nine additional invited
1-hour talks by other leading researchers. Among the recent important
developments in 3-dimensional topology that will be discussed, with a
view to illuminating the theory of 3-manifolds beyond Geometrization,
are: the proofs of the Tameness and Ending Lamination Conjectures,
Heegaard Floer homology theory, various approaches to the virtual Haken
Conjecture, and the connection between 3-dimensional topology and the
theory of word hyperbolic groups.

3-dimensional topology is a large and active subject within the general
field of pure mathematics. Its goal is the study of all possible
3-dimensional "spaces", and of the various objects that can be situated
in them, such as knots. Over the last 30 years or so this subject has
seen many exciting developments, revealing connections to many other
branches of mathematics as well as quantum physics and (in the case of
knots) even to the behavior of DNA. The guiding light of the subject
during this period has been the Geometrization Conjecture, put forward
William Thurston in the mid 1970's, which asserts that hyperbolic
geometry, the non-euclidean geometry discovered by Lobachevsky in the
19th century, plays a key role in the description of these 3-dimensional
spaces. This conjecture was recently proved by Grisha Perelman. It seems
timely, then, to take stock of the subject, identifying the major
problems that remain and indicating potential techniques and directions
for future work. The core of the program will be five series of three
1-hour lectures, given by five internationally renowned experts in the
subject. It is expected that this will make the workshop especially
useful to young researchers.

The conference web site is
http://www.icms.org.uk/meetings/2006/3-manifolds/index.html.